Structure and Dynamics Measurements in Model Two-DimensionalChemical Systems

In this project sponsored by the Experimental Physical Chemistry Program, Professor George Ewing of Indiana University will use infrared and fluorescence spectroscopy to map patterns of energy flow for small molecules weakly adsorbed on single crystal insulator surfaces. This includes developing techniques for growing well-ordered monolayers on well-defined surfaces, and studies of two dimensional phase transitions as well as obtaining rates of vibrational dephasing, radiation, phonon excitation, and photodetachment. The work is important because it illustrates differences between insulator surfaces which bind intact molecules weakly, and more commonly studied conducting (metallic) surfaces which involve much stronger atom-surface interactions. %%% Molecules bound to metal surfaces are often destroyed by the strong bonding forces. By focussing attention on molecules bound to insulators, Professor Ewing (Indiana University) is able to learn how energy flows between a surface and intact, weakly bound molecules. This provides a unique glimpse into the chemistry of fundamental processes involved in friction and lubrication.